Conference: Materials Data and Artificial Intelligence Biennial Principal Investigator Workshop

This grant funds a workshop to bring together Designing Materials to Revolutionize and Engineer our Future (DMREF) and the Materials Innovation Platform (MIP) awardees as well as DMREF partners from the National Institute of Standards and Technology (NIST), the Air Force Research Laboratory (AFRL), the Department of Energy (DOE), the Office of Naval Research (ONR), and various other federal agencies. The meeting discusses challenges and successes in materials research and provides an assessment of the current state of the scientific ecosystem on materials discovery and development. This workshop also serves as a platform for collaborative work leveraging rapid growth in data, data-driven Artificial Intelligence/Machine Learning, and community-wide infrastructure development. This meeting includes technical presentations by attendees, poster sessions, and breakout sessions on overarching topics. Questions on workforce training are also discussed. Results from the workshop are to be made available to the broader materials community and the public in the form of an electronic Conference Proceeding booklet.

DMREF emphasizes a deep integration of experiments, computation, and theory; the use of accessible digital data across the materials development continuum; and strengthening connections among theorists, computational scientists (including data scientists), and experimentalists, as well as those from academia, industry, and government. A venue is provided for researchers to discuss the trials and successes of their individual projects with their colleagues to facilitate their research efforts. This meeting helps promote advanced materials design within the materials community and address the challenges and gaps in the application of new Artificial Intelligence tools and systems. The workshop is to be held in downtown Washington, DC, in August 2026, following a series of successful workshops, the latest of which was held in July 2024.